Marine Technicians

9800650 Smith This award to the University of Alaska at Fairbanks will provide technical support to NSF-supported researchers on the ship R/V Alpha Helix for field programs in the Gulf of Alaska and Bering Sea regions in 1998 and 1999. Alpha Helix is operated by the University of Alaska as part of the University-National Oceanographic Laboratory System fleet.